Systemic Renewal of Teacher Preparation and Mathematics and Science Education

9354038 Cox The primary goal of this proposal is to redesign the curriculum for preparing teachers of K-12 mathematics and science. It is based on a philosophy that emphasizes the integration of mathematics, science and teacher preparation using inquiry- based, experiential learning by setting up design teams, which will be linked electronically. This is to be accomplished through experiential and service learning (especially through environmental service learning projects). The project features a summer institute in which prospective teachers, practicing teachers, and science, math and education faculty will participate. The purpose of this institute for 40 students and teachers, is to prepare the participants to develop integrated mathematics-science service-learning approaches that will be implemented in the fall of 1994. Mentoring teams, consisting of a scientist, mathematician, a teacher educator, a practicing teacher and a pre-service teacher, will be formed during the institute and will continue their discourse during the fall via an electronic mail network. Information will be shared among the participants and with teams at the Partner Schools of National Network for Educational Renewal (NNER) in Utah, South Carolina and Texas. An external evaluation of the pilot project will be conducted to assess the summer institute and the fall semester's activities.